Resonance Raman Studies of Excited-State Structure and Dynamics

In this project in the Physical Chemistry Program of the Chemistry Division, Professor Richard A. Mathies of the University of California at Berkeley will conduct a series of investigations to determine the ground and excited-state nuclear dynamics and structural changes that occur in condensed phase photochemical and photobiological reactions and thereby understand their molecular reaction mechanisms. The mode-specific nuclear dynamics that occur immediately after excitation of a photochemically active system will be determined by measuring and analyzing absolute laser resonance Raman vibrational scattering intensities. Picosecond time-resolved resonance Raman and absorption spectroscopy will be used to study the kinetics of ground-state photoproduct formation and the structures and relaxation of ground-state photochemical intermediates. The following studies will be pursued. 1) Photochemical ring-opening, ring-closing and 1,7 hydrogen shift reactions of cyclic polyenes; 2) the response of protein environment in bacteriorhodopsin and in phycobiliproteins to the electronic excitation/photoisomerization of their bound chromophoric prosthetic groups will be studied; 3) the photoexcitation of visual pigment rhodopsin will be investigated; 4) the photochemical electron transfer reaction in bacterial photosynthetic reaction centers, and 5) the mechanism of photochemical excitation of tetrapyrrole chromophore in phytochrome, the light sensing pigment in plants, will be examined. These investigations probe the basics of the interaction between light and photo-biologically active materials and will contribute to our understanding of the fundamental processes which take place in animate and inanimate living systems. The overall goal of this research is to find general principles about how chemical reactions occur in condensed phase photochemical systems at room temperature.